Studies on the Reversibility of Long-Term Potentiation

Dr. Staubli is analyzing memory in the olfactory system, encompassing studies ranging from basic physiology to the more global cognitive operations of learning and forgetting. Her previous studies have demonstrated that brief bursts of electrical stimulation to the pathway which connects the nose to the brain, when given at the frequency at which rats sniff air, are treated by the animals as if they perceived real odors. In standard learning situations animals will quickly acquire a discrimination between these "electrical odors." As a result, the connections between the stimulated axons and the target neurons in the olfactory cortex show long-lasting physiological changes (potentiation). Importantly, the synaptic connections of naive, non-learning animals show no such changes. This suggests that the observed physiological changes might reflect the formation of memories of the "electrical odors." Dr. Staubli has also demonstrated that long-term potentiation (LTP) in another brain region involved in learning (the hippocampus) can be reversed by long trains of low frequency stimulation. She is now examining LTP in the lateral olfactory tract, testing whether it can be reversed. If so, then the behavioral effects of the manipulation will be measured; that is, does reversal of LTP in the olfactory system eliminate the memory of the "electrical odors." These experiments should provide evidence regarding the possibility that memory decay is due to an active, rather than a passive process.